Shipboard Scientific Support Equipment

ABSTRACT

02 July 2012
Proposal Number: 1216510
Institution: Skidaway Institute of Oceanography
PI: M. Richter
Co-PI: J. Sanders

This proposal requests two Shipboard Scientific Support Equipment items for the University of Delaware for use aboard the R/V HUGH R. SHARP; namely a new double-articulated side A-frame and up-grades to an existing portable deck winch. Both items will enhance safety and provide greatly improved support capabilities to a wide variety of scientific projects.

Broader Impact and Intellectual Merit: The PI addressed the Broader Impact and Intellectual Merit of the proposed equipment specifically for the R/V HUGH R. SHARP. The research projects supported have been individually peer-reviewed for scientific merit. During operations, these vessels routinely expose graduate and undergraduate students to seagoing oceanography. Specifically, College of Marine and Earth Studies participates in a large number of outreach programs including open house events (Coast Day), participation the MATE program, and educational cruises. The College also hosts the UNOLS East Coast Van Pool. The R/V HUGH R. SHARP is scheduled to support over 90 NSF-funded days in CY 2012.